Presidential Faculty Fellow

Funded under the new Presidential Faculty Fellow program (PFF), research and teaching will be supplemented in the area of fluid dynamics related to biomedical systems. The research is experimental, and is focused on particle tracking in branching and curved tubes. The research is applicable to flow through large blood vessels, and other arterial flows.